Math, Computer Sciences, and Engineering Technology Scholarship Program to Increase Degree and Career Success of Students in Financial Need

This project awards 25 scholarships annually to students enrolled on a full time basis in Engineering Technology, Mathematics, or Computer Sciences.

The primary objectives are to increase the number of students pursuing and obtaining degrees, improve the performance of enrolled students, and increase the marketable skills of the students in Mathematics, Computer Sciences, and Engineering Technology.

Mentoring, advising, counseling, career placement, internships, and research opportunities are integrated through teams that meet regularly focusing specifically on the scholars. Within the project is an assessment plan that is designed to foster continuous improvement.